Enhancing Interdisciplinary Research in Security and Computer Architecture Via Tutorial at FCRC

This award supports student participation in tutorials on security issues at the hardware design layer, in order to expand the pool of scientists qualified to pursue research topics in this area.